SGER: Geophysical and Geochemical Studies of Plume-Ridge Interaction at the St. Paul-Amsterdam Plateau, Southeast Indian Ridge, PLURIEL Expedition

Abstract

Under this award the PI will study the Amsterdam and St. Paul hotspots in the Indian Ocean as a participate in a field program aboard a French research vessel. He will collaborate on the study of the collected underway geophysical data and rock samples. The expedition is scheduled for September, 2006 aboard the Marion Dufresnes.